Project Oriented Interactive Undergraduate Laboratory

Ting Shan Luk DUE 9550917 University of Wyoming FY1995 $ Laramie, WY 820713434 ILI - Instrumentation Project: Physics Title: Project Oriented Interactive Undergraduate Laboratory This is a proposal to develop a project oriented interactive undergraduate laboratory course that would allow physics and astronomy students to develop a synthesis of and confidence in what they have learned. It provides opportunities to experience the process of learning new physical principles through experiments. In addition, the students will acquire skills in instrumentation and modem experimental techniques, data reduction, and modeling that will enhance their qualifications for other career options. This laboratory will therefore prepare undergraduate physics and astronomy students to pursue a broad range of career options.